U.S.-Vietnam Cooperative Research: A Two-Stage General Calibrating Reliability Model for Predicting Software Reliability Under Operating Environments

0107755
Pham

This is a eighteen-month U.S.-Vietnam cooperative project between Dr. Hoang Pham, Rutgers University, and Dr. Thuy Bich Dong, the University of Natural Sciences, Ho Chi Minh City, Vietnam, to study a two-stage general calibrating reliablity model for predicting software reliability under operating environments. This research is important and addresses a key quality control problem in computer and information technology. The inclusion of development process factors in software reliability models is a first important step in improving accuracy in telecommunication software. The results of this study can have a wide variety of applications including use in computer and information technology and in control and automation systems. This proposal addressess an important scientific question and meets the NSF focus area of human resource development.